Regulation and Mechanisms of Initiation of DNA Replication in Yeast

Replication of eucaryotic genomic DNA in a normal cell is cell cycle regulated. Chromosomes are replicated only once in the S- phase. This important regulation system is not understood. To understand this process it will be necessary to elucidate the mechanism of initiation of DNA replication at a single replicon. Thus our long term goals are: (i) to understand the biochemical processes that govern the initiation of DNA replication at a eucaryotic chromosomal origin; (ii) to understand how initiation of DNA replication at this origin is regulated on the biochemical and genetic level. To achieve these goals, it will be necessary to identify, isolate and characterize both the proteins and genes involved in initiation. Recently we defined a new origin of replication, ARS121, which we found to be comprised of at least two major domains important for the origin function (61). Our working hypothesis is that one of these domains is a replication regulatory domain (RRD) whereas the other is a replication essential domain (RED). We found that RRD is a target for binding of OBFl, which was identified, isolated and partially characterized in our laboratory (60,61). Based on our studies, we propose that RRD has a role in determining if and when RED wll be activated for initiation of DNA replication. We propose that this regulation is accomplished by the DNA binding proteins that recognize specifically DNA elements present in RRD. In this context, our short range specific aims are: I, to isolate, and overexpress the gene encoding OBF1; from yeast genomic libraries in ll; II to characterize the biochemical properties of OBF1; III to isolate and characterize additional origin-binding proteins; IV, to isolate and overexpress the genes encoding these proteins from yeast genomic libraries in ll; V, to test our basic hypothesis described above a direct examination of the activation of ARS121 in vivo; VI, to isolate and characterize new origins of replication. This project should provide new insights into the regulation of initiation of replication at a eucaryotic origin of replication and will provide the tools necessary for reconstructing in the future a protein-DNA complex at the origin for the studies of the mechanism of initiation of DNA replication in vitro.